Nonrelativistic Multichannel Quantum Scattering Theory

This award supports basic research in nuclear theory. Professors Chandler and Gibson are developing techniques to apply their formal theory of multiparticle scattering to realistic three body problems. In particular, the problem of incorporating Coulomb interactions properly will be investigated.